Scholarships in IT & Engineering

Interdisciplinary (99)

This project provides scholarships and supplemental academic and student support services for twenty (20) low-income, academically talented, full-time undergraduate students in General Engineering, Chemical Engineering, Mechanical Engineering, Computer Engineering, Computer Science, and Information Systems. Recruitment comes from transfer, new, and current students declaring a major in engineering or IT. The project will emulate an existing successful program infrastructure, which currently maintains a 94% retention rate for its undergraduates, provides enrichments that build a strong cohort, and builds upon lessons learned from a previous CSEMS program. The following project objectives include: (1) continuing to improve the transfer process between the state's two-year institutions and the current institution by targeting engineering and IT students; (2) building on the institution's demonstrated success in recruitment and retention programs supporting women and minorities; and (3) providing enhanced financial, academic, career and leadership development opportunities to the target audience.